Tallium Bromide Nuclear Detectors (Physics)

This SBIR Phase II grant supports research and development of nuclear radiation detectors fabricated from the semi- conductor material thallium iodide. Thallium iodide has an extremely high photoelectric absorption efficiency for gamma radiation and a large semiconductor bandgap. These properties render the material an exciting candidate for specialized applications where small size, high efficiency and relaxed environmental criteria rule out use of the available materials. The research will develop techniques for producing ultra high purity thallium iodide, building on promising steps in this director that were taken in the Phase I project. Radiation detectors fabricated from thallium iodide would have important advantages over existing detectors, for applications in nuclear and particle physics research and in measurements important in industrial processing control, and in nuclear medicine.//